CAREER: Multiscale Modeling of Axonal Fiber Bundles in the Brain

Brain injuries are a significant health concern for civilian and military populations. Many of these injuries result from damage to the axons, the long extensions of neurons that allow communication between brain cells. This Faculty Early Career Development Program (CAREER) project will contribute to the understanding of brain trauma by developing advanced computer models that link neuroimaging results, biomechanical assessments, and computational modeling of the brain. Specifically, this project will develop and validate a model of axonal damage using controlled experimental methods. More broadly, the continued pursuit of the development and validation of numerical diagnostics is anticipated to advance the emerging field of computational medicine. This project will integrate education and outreach activities with the research, including a mobile "NSF Sideline Science" curriculum that teaches and promotes awareness of brain science and computational medicine for K-12 students and the general public. In addition, a systematic multiyear study will examine the effectiveness of a new junior-level computational tools course on improving undergraduate performance in other core engineering and design courses. Also, a graduate-level, semiannual colloquium will enhance students' understanding of the power of advanced cyberinfrastructures to solve diverse problems in science and engineering.

Diffuse axonal injury is a common pathology associated with traumatic brain injury in which deformation of axonal cells leads to rupture and axonal degeneration; yet, there remain difficulties with interpreting the degree of injury based on imaging of structural changes. Axonal fiber tracts formed from organized collections of neural cells can be visualized using magnetic resonance diffusion imaging. These images will be used in conjunction with a new multiscale embedded finite element technique that models the complex nature of axonal tracts in the brain. The research objective is to develop a validated multiscale computational method that explicitly includes axonal fiber tracts from diffusion-weighted neuroimaging and predicts primary and secondary effects of axonal injury over time. The central hypothesis is that changes in diffusion tensor imaging can be fully explained through the use of computational predictions of axonal fiber bundle strain. This project will develop a new computational tool, or "Digital Brain," that leverages advanced cyberinfrastructures and expands capabilities in the emerging field of computational medicine. This will be accomplished through the implementation of a new multiscale embedded finite element technique to model the complex nature of axonal tracts in the brain as well as a time-dependent, inelastic damage model for the axonal fiber tracts and surrounding extra cellular matrix. Both will be validated using controlled experimental methods. The model will extend from the molecular to the organ level to study axonal injury mechanisms. Single cell-to-fiber tract coupling will enable the transfer of structural and functional information across scales. This multiscale modeling will thus provide insight into primary and secondary Wallerian injury cascades associated with brain injury.